ANALYTIC AND GEOMETRIC ASPECTS OF RICCI FLOW

Abstract

Award: DMS-9971891
Principal Investigator: Bennett Chow

The objective of the project is to investigate analytic and
geometric aspects of Hamilton's Ricci flow of Riemannian metrics,
and related topics. This flow has been successful in
topologically classifying Riemannian manifolds satisfying
positive curvature conditions. Hamilton's program for the Ricci
flow on 3-dimensional manifolds is an approach to understanding
Thurston's Geometrization Conjecture, which subsumes the Poincare
Conjecture. The main topics considered in the project include
the search for new Harnack inequalities for the Ricci flow,
furthering the geometric understanding of the existing Harnack
inequalities, and investigations in the behavior of the Ricci
flow for collapsing solutions. Harnack inequalities are
fundamental to the area of partial differential equations and
they have been pioneered for parabolic equations in differential
geometry by the work of Li, Yau, and Hamilton. Hamilton's matrix
Harnack inequality is especially important in the analysis of
singularities that arise under the Ricci flow. Understanding
these singularities has had a major impact on the study of other
evolution equations such as the mean curvature flow, and depends
upon tools such as a compactness theorem related to injectivity
radius estimates. We shall consider aspects of the Ricci flow in
the absence of such estimates, where solutions collapse.

Many phenomena are modeled by evolutionary equations, such as the
transfer of heat and the evolution of interfaces between molten
and solid forms of metal. The study of evolution equations in
geometry has grown tremendously in the last several years. In
many cases geometric evolution equations deform an initial
geometric structure to an improved one, but in other cases the
structures develop singularities. It is of fundamental importance
to analyze these singularities. Such a study has been carried out
to a large extent for the Ricci flow, which is an evolution
equation deforming geometric structures on manifolds, the locally
Euclidean spaces arising in Einstein's Theory of Relativity and
most major branches of mathematics and theoretical physics. For
example, space-time is a 4-dimensional manifold and the universe
we live in is a 3-dimensional manifold. It is widely believed by
mathematicians that any 3-dimensional manifold may be decomposed
into pieces which admit canonical geometric structures. Since
the Ricci flow deforms geometric structures, and all manifolds
admit geometric structures, it may be used as an approach to the
above question if it can be shown that the flow deforms geometric
structures to canonical geometric structures.